SBIR Phase I: Novel Thin Films Based High Efficiency Ferroelectric Cathode

This SBIR Phase I Project develop a low-voltage ferroelectric cathode technology based on ferroelectric films for application to cold cathodes for accelerators, high frequency devices, mass spectrometers and other instruments based on cold cathodes. Ferroelectric materials emit pulses of electrons from their surface during rapid polarization reversal. High current density (up to 100 A/cm2) has been obtained using cathodes with thick ferroelectric layers, requiring excitation voltages in the 3-5 kV range. However, it is desirable to develop ferroelectric cathodes which require operating voltages in the hundred's of volts range, to make them more energy efficient and less susceptible to high voltage-induced breakdown.

The primary objective of the proposed research program will be the development of low-voltage, high-current, reliable, film-based ferroelectric cathodes. This will be accomplished by advancing the current understanding of the material requirements and electrode configuration to maximize the electron emission current. It is expected that the proposed technology will provide high current, low voltage ferroelectric cathodes for a variety of applications requiring lower power consumption.